Dissertation Research: Dermatoglyphic Analysis of Discordant Male Monozygotic Twins

Dermatoglyphic traits develop during the second trimester in utero, and are excellent markers for second trimester antenatal environmental events. Recent research has demonstrated that a monozygotic twin model employing dermatoglyphics may be used to determine whether antenatal environmental conditions influence the etiology of complex bio-behavioral traits during the second trimester. This model has been successfully applied in a study of schizophrenia. Identical twins discordant for schizophrenia (ie., one twin had the disease while the other did not) were also discordant for total finger ridge count. As monzygotic twins are usually concordant for this dermatoglyphic trait, an environmental event is implicated. This event would have to occur during the second trimester and may play a role in the etiology of schizophrenia, as well as in the development of dermatoglyphic traits. The present study will use this monozygotic twin-dermatoglyphic model to determine whether there is evidence of a second trimester antenatal environmental component in the etiology of other complex behaviors in males. This study will also collect data on other characteristics associated with antenatal development, such as handedness and birth-weight.